Renovation of Chemical Engineering Research Laboratories

9214180 Russel The Chemical Engineering department at Princeton University, noted for it's top rated research, remains as one of the leaders in the filed. In order to maintain this status, it is imperative that Princeton's chemical engineering research facilities be modernized. This ARI award provides funds to renovate and modernize the chemical engineering research facilities located in the A-wing of the Engineering Quadrangle and the G- wing of the Energy Research Laboratory. Present conditions within the laboratories are ill-suited for modern computational and experimental research. Renovations to these facilities will improve services to insure proper electrical supply, chilled and deionized water, high pressure nitrogen, compressed air and ventilation. With the refurbishment of obsolete research laboratories, efforts in the fields or ceramic processing, complex fluids catalysis and surface science, nonlinear dynamics, and polymer science and materials will significantly expand the Department;s influence in the field. Renovated facilities will sustain the momentum acquired by the Chemical Engineering department over the past decade through major senior appointments and the development and promotion of outstanding junior faculty. The department's influence on the profession through its leadership in the field, collaborations with industrial laboratories, and producing studnets who continue to pursue advance degrees will strengthen with modern facilities. ***